Fourth International Laser Science Conference; Atlanta, Georgia; October 2-6, 1988 (Physics)

This conference is unique for its annual survey of the state-of-the-art of the development and widespread use of lasers. It focusses on topics fundamental to laser sciences, and thus complements other conferences dealing with laser engineering and technology.